Evolutionary Influences of Dietary Cyanogens on Hemoglobin S...

The primary ofbjective of the project is to develop a competitive research proposal on "Evolutionary Influences of Dietary Cyanogens on Hemoglobin." Support of the project will assist a well trained black, anthropologist to improve her research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.